CONNECT" The Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring

HRD 03-27699
The CONNECT project at the University of California at Riverside works to increase the pool of available mathematics teachers, develop the mathematical capabilities of secondary school students (grades 6-12), and improve the mathematics curriculum - all through mentoring and associated activities. The CONNECT mentoring network builds upon a strong suite of existing programs at UC Riverside (MATE, GEMS, CTF, HBHM) involving a diverse range of target audiences and participants from college faculty, to students in grades 6-12, to undergraduates, and to secondary school teachers.